Group Polarization

It is self-evident that in society, many if not the most important
decisions are made by groups. Group involvement is endemic, whether it be
voting among large populations or deliberation by small committees. A
standard view of group decision-making is that it facilitates exchanges of
ideas and information, which necessarily lead to better outcomes. This view
stands in contrast to a striking empirical regularity, dubbed group
polarization, whereby members of a deliberating group predictably move
toward a more extreme point in the direction indicated by the members'
predeliberation tendencies. The aim of this project is to bridge the gap
between the standard naive view of group decision-making and the empirical
literature.

The project focuses on two distinct processes of group
polarization. The first process operates in group decisions over risky
prospects, where group members exhibit choice-shifts: They tend to take on
more extreme levels of risk (either riskier or more cautious), relative to
the levels of risk they would accept as individuals outside the group. The
researchers propose an explanation for choice shifts, which is based on a
model of individual decision-making. Hence, the framework they offer
applies not only to choice shifts observed in groups but also to commonly
observed biases in individual decision making. The second process analyzed
in this proposal operates in groups that face a threat of disagreement.
This threat plays an important role in explaining the fact that preference
intensities matter in group interaction, and do so in non-additive ways.
The researchers propose a dynamic model of group deliberation where each
member wishes to implement a distinct policy, and the favorite policy of
each member imposes externalities on the other members. The researchers
discuss how this model can accommodate notions of `extremism' and
`tolerance', and offer a methodology to study the formal relation between
these two concepts. The proposed framework has the potential of allowing
the researchers to rank different supermajority rules by the level of
`extremism' that they impose in equilibrium.